Integrated Control Structure for Construction

PIs proposed to develop construction control systems to better understand production operations, to develop methods of satisfying conflicting objectives, and to design standards for integrated process and project control. An interdisciplinary research team, including academics (Maryland, Virginia Tech, Stanford and Penn State), NIST and construction industry, is assembled. The team will work to develop and test on site, a computer based open system for planning and control during the construction phase of a project. The overall goal of this research is to establish an integrated and flexible control concept for construction which is based on system and information theory, hierarchical control and state-machine concepts, uncertainty analysis, and computer simulation and emulation. In this context a generic framework will be developed to provide a structure for controlling four specific construction objectives: Quality, Safety, Productivity and Precision (As-Built). Data acquisition, reduction and analysis of construction parameters are needed. This process can be in the form of point-in-time sampling rather than real time. A case study will be considered to perform this process. Automatic data collection devices, such as senors (e.g., strain gauges) and voice recognition systems, will be selected and tested for the case study.//